Developing Adsorptive Protein Separations

This study will speed the design of adsorptive protein separations, with emphasis on efficient scale-up. The focus is on instrumental techniques for direct measurement of key separation parameters: o Intraparticle diffusion coefficients, needed to predict effectiveness of any adsorptive process and especially important at the high loadings of commercial separators. Pulsed field gradient NMR techniques will be used for this purpose. o Adsorption kinetics, needed to predict resolution and yield losses, and again most important at high solute loading. o Convective dispersion coefficients, to characterize the effects of system geometry and flow conditions. Magnetic resonance imaging will be used. Success will permit rational design based on underlying transport and reaction principles, and thus not only to optimize process conditions but also to consider alternate processing modes and equipment configurations. This research will enhance the development of therapeutic proteins and other important new drugs and also reduce the cost of producing them by providing improved procedures for downstream processing, isolation, and purification from fermentation broths or other crude sources. Downstream processing accounts for 50 to 80 percent of total production costs but has tended to be neglected by engineers relative to other aspects of the production process. Attention is focused here on adsorptive separations, such as chromatography, because these are particularly effective for two critically important classes of therapeutic agents: proteins and synthetic organics. Speeding commercial development is necessary if we are to prevent competitors from capitalizing on the discoveries of American medical and biological researchers.